Theoretical Nuclear Physics

Theoretical research in proposed in the field of intermediate and low-energy nuclear physics. The projects share, in the main, the methods and models of the few-body problem, attention to the successful phenomenology of the strong interaction at the hadronic and at the quark level, and use of the electromagnetic interaction as a probe of properties of systems bound by the strong interaction. These projects include three-nucleon forces, nuclear charge asymmetry in nuclear and hypernuclear systems, and three- body models of light nuclei and hypernuclei.